Invariants of Links and 3-manifolds

DMS-0204158
Thang Le

Thang Le plans to continue his study of quantum and finite type
invariants of links and 3-manifolds. In particular, he would like
to study problems arising around the volume conjecture which
connects quantum invariants to classical objects like fundamental
groups, torsions, and volumes. Other problems involve integrality
properties (in broad sense) of quantum invariants and the
topology behind them, and their applications. The field has
interactions with geometry, combinatorics, number theory, and
physics.

The theory of knots and 3-manifolds is an old branch of
mathematics which has gained renewed interest among
mathematicians and physicists after the discovery of the Jones
polynomial and its relation to theoretical physics (quantum field
theory, high energy physics). In fact, it is now one of the most
active domains in mathematics. Many results of knot theory may
also find applications in molecular biology. To classify knots
and 3-manifolds, mathematicians use "invariants". This research
project studies new classes of invariants of knots and
3-manifolds and their relationships with the classical ones. The
new invariants are very powerful in distinguishing knots and
3-manifolds.